Ensuring NII Accessibility: A Research Agenda

9503166 Glinert This award is for the funding of travel and subsistence for participants in a workshop setting a research agenda for facilitating the use of the National Information Infrastructure by the handicapped and elderly. The workshop is being held on October 30, 1994 and a report on the research agenda will be issued as part of this award. ***